Spin-Polarized Electron Spectroscopies of Magnetic Surfaces

The electronic structure of magnetic surfaces will be studied by spin-polarized electron energy loss spectroscopy, combining a polarized source with polarization analysis of the scattered electrons. Specifically, they will study the temperature dependence of the Stoner excitation spectrum in nickel, measure the exchange splitting of the chromium(100) surface and explore the potential of spin-polarized Electron Energy Loss Spectroscopy in probing the electronic structure of antiferromagnetically ordered materials, using thin nickel oxide layers. Nickel oxide is the model antiferromagnetic Mott insulator. In addition, they will study the magnetization profile and its temperature dependence of clean and adsorbate covered surfaces by angle dependent spin polarized secondary electron spectroscopy.